Various Inverse Problems in Partial Differential Equations and Methods for their Solutions

9971674
Rundell

This proposal investigates several inverse problems for partial differential
equations. Our particular focus is in uniqueness results that seek the
minimal amount of data required to determine unknown coefficients lying
within certain predetermined classes. We are also interested in
reconstruction methods based on iteration schemes and in particular to
schemes that utilize higher derivatives of the coefficient to data map.
Finally, for certain undetermined coefficient problems we propose to
investigate the following: given information (or assumptions) on the error
in the data, that is, what type of distribution it obeys and what are the
significant moments, what is the distribution of the possible
reconstructions of the coefficient?

Many objects of physical interest cannot be studied directly. Examples
include imaging the interior of the body, the determination of cracks
within solid objects, and material parameters such as the conductivity of
inaccessible objects. When these problems are translated into
mathematical terms they take the form of partial differential equations, the
Lingua Franca of the mathematical sciences. The additional unknowns in
the model translate into unknown parameters in the equations and we
attempt to solve for these by means of further measurements. In this
proposal we deal with the practical aspects of this from a mathematical
perspective: We are interested in the question of when a unique
determination can be made, as well as designing algorithms for the
efficient numerical recovery of the unknowns. The mathematical
techniques used and to be developed are applicable to several different
scientific problems. Examples are: (1) The recovery of the location and
shape of interior objects from surface measurements. Applications here
include the determination of tumors (which are characterized by a greater
metabolic rate) and buried mines and munitions (characterized by a higher
electrical conductivity). (2) The determination of the interior density
profile of the sun from spectral data. This is important because it would
provide an independent check of our current understanding of both the
composition of a star such as the sun and the underlying physics with
which we model its internal reactions.